VLSI Educators Conference and Exposition, Santa Clara, California, August 24-26, 1988

We are encouraging the spread of VLSI design education to a wider range of institutions. The increased availability of VLSI design courses and fabrication through MOSIS is important not only because of educational relevance, but also because of the industrial need for designers with VLSI skills. We plan to help with the entry of VLSI design into curricula at institutions that are otherwise not able to cope with the relatively costly initial steps, which are teacher preparation and installation of computer hardware and software appropriate for computer-aided design. The proposed educators conference and exposition are efficient means for spreading know-how needed for informed entry into VLSI education. The technical leadership for this event will come from Mr. Paul Losleben. He is one of the pioneers in VLSI fabrication service and particularly well qualified to lead the proposed effort. He has delineated a sound plan. The requested funds, which are modest, are adroitly leveraged. The proposed conference and exposition are promising, practical and cost-effective steps for helping the expansion of VLSI design education in U.S. institutions.